SGER: Towards a Noninvasive Cardiac Pressure Monitor: Characterization of the Electrical Permittivity of Blood as a Function of Pressure

9977859
Oakley
This research project is supported by a Small Grant for Exploratory Research (SGER).

Studies show that the electrical permittivity of blood changes as a function of temperature at microwave frequencies and that the chemical makeup of blood is sensitive to minor changes in pressure. It also has been shown that microwave images of biological tissue with blood flow and with no blood flow are different. The Principal Investigator has conjectured that blood's gamma dispersion would increase for increased pressure, while the relaxation frequency would decrease. Confirmation of that conjecture would provide knowledge needed for the development of a new medical imaging technology. Such a technology would provide for a non-invasive 2-D and perhaps 3-D viewing of cardiovascular pressure.